SBIR Phase I: Wildlife Detection and Deterrence

This Small Business Innovative Research (SBIR) Phase I project applies innovative image recognition technology to address the nuisance and dangers caused to society by white-tailed deer, whose populations have exploded in the United States. White-tailed deer cause hundreds of million dollars of plant damage annually and are involved in about 1 million car accidents per year that kill 200 Americans, cause more than 10,000 personal injuries, and result in $1 billion in vehicle damage. No effective and affordable deer detection capability is commercially available for warning motorists or scaring away the deer. This project researches improvements in the image analysis field to process daylight and low-light images produced by low-cost image sensor components to reliably detect the presence of deer. Low cost image sensor components optimized for all light conditions require new image analysis techniques to account for the varying image quality. This project also researches and tests techniques that will humanely scare/haze away nuisance deer. When the image analysis output drives a hazing device, this demand performance capability prevents habituation, a historical problem inherent in other scare tactics. The result of the research is demonstration of a reliable white-tailed deer detector that incorporates an effective, yet humane deer deterrent.

The broader impact/commercial potential of this project is driven by the advancement of image processing techniques using low-cost image sensor components to create a new category of detection technology with never before realized price-performance utility. There is no known, standalone sensor system that can be specifically configured for the detection of pre-selected, objects of interest or pre-determined events. White-tailed deer are one of many wildlife species that cause damage to property and traffic accidents, affecting every rural and urban societal demographic, and the problem continues to grow. Demand performance deterrence is humane, applicable to any animal species, and supports a variety of end uses including administering species-specific contraceptives, selective trapping, and an array of traffic warning systems. This research moves forward the creation of a generic device that can be configured for a multitude of applications across most every segment of industry, including recreational, medical, industrial, security, and military. The ultimate strategy for the technology is to reduce the sensor system cost to a consumer-level price range so that it may be incorporated into to a variety of low-cost appliances that provide new levels of utility around the house and home.